IUCRC Phase II+ West Virginia University: Center for Building Reliable Advances and Innovations in Neurotechnology (IUCRC BRAIN)

Disability is becoming a leading cause of healthcare concern because of the increase in survivable trauma and an aging population. Millions of adults live with neurological disorders, brain injury, mental illness, limb loss or paralysis. There is a need for accessible technologies that can more effectively address the care and rehabilitation needs of these patients. However, innovation in neurotechnology faces several challenges: The pace of innovation exceeds the rate of evaluation for acceptable performance; standards for the validation of safety, efficacy, and reliability of neurotechnology are lagging; current technologies are costly, limiting their deployment for treatment of disabilities; and the need to train new generations of physicians and engineers in emerging technologies steadily increases.

The Industry-University Cooperative Research Center for Building Reliable Advances and Innovations in Neurotechnology (IUCRC BRAIN) will address the above challenges. The Center’s vision is built on a convergent research approach to the design and validation of reliable, ethical, patient-centered neurotechnologies and their use in understanding neural systems. BRAIN leverages wide-ranging expertise from neural, cognitive and rehabilitation engineering to neurorobotics, neuromodulation, and ethical artificial intelligence to enhance the rate of development and empirical validation of new neurotechnologies through partnerships with industry and other strategic partners while developing a highly skilled workforce; evaluating the impact of these technologies on quality of life; and integrating knowledge across disciplines —such as the humanities with neurotechnologies — to understand collective intelligence, and augment physical and cognitive capabilities.

The Center’s mission is multifold: to accelerate the progress of science and advance the national health by transferring neurotechnology to end users and to promote access to science, technology, engineering, and math by broadening new participation and retaining current participants. BRAIN will address problems in the neurological space. BRAIN will become a neurotechnology hub by creating a pipeline from discoveries to solutions, while helping students, scientists, and engineers solve one of the greatest unmet medical and health care needs of our time.

The West Virginia Site of IUCRC BRAIN will focus on bringing clinical testing of multi-scale, multi-modal, and trans-disciplinary approaches to the overall IUCRC team. WVU team will work with other BRAIN sites and industry partners to translate discoveries in neurotechnology for implanted brain-computer interfaces, treating human disability, clinical data sharing, and the use of AI-connected virtual reality applications for improved medical treatments. As part of the IUCRC BRAIN program, the WVU site will recruit and train students.